Mathematical Sciences: Research in Dynamical Systems

9505833 Milnor The proposed research covers a wide array of problems in dynamical systems: real and complex 1- and 2-dimensional systems, Kleinian groups, Hamiltonian systems, and hyperbolic systems are among the topics to be pursued. The field of dynamics is an enormous one, with major contributions having been made by scientists from many different disciplines. This reflects the fact that it is also a field with important applications to many fields. In particular, two-dimensional dynamical systems can be used to model ocean dynamics involving shallow water waves.